Conformational Change in Cytochrome Oxidase Upon Cyanide Binding

The primary objective of this ROW Research Planning grant will be use of a pilot project to demonstrate the feasibility of a new approach, the application of simple immunochemical tools to the study, not simply of the structural characteristics, but of the relationship between protein structure and function in beef heart cytochrome c oxidase. The pilot project will study the relationship between, on the one hand, major conformational shifts in oxidase protein the P.I. has previously observed using rabbit subunit-specific IgG, and on the other hand, "open" and "closed" states of the oxidase reported by others to influence the accessibility of the enzyme's oxygen binding site to ligands such as cyanide. Two directions of influence will be examined: The effect of antibody binding in the kinetics of cyanide- inhibition of the oxidase, and the effect of bound cyanide on the affinity of the antibodies for the oxidase. In addition to establishing the effectiveness of polyclonal IgG as a research tool to explore the functional role of oxidase protein, it is anticipated that the planning activities will enable the initiation of the Principal Investigator's independent research career by establishment of a research laboratory and independent publication. This research will clarify the relationship between the structure and function of an important protein.